CISE Research Infrastructure: Parallel and Distributed Computing: System and Application Development Infrastructure

CDA-9703088 Lori Pollock University of Delaware Parallel and Distributed Computing: System and Application Development Infrastructure This award provides support for research infrastructure based on a cluster of high-performance, multiprocessor workstations connected via high-speed networks. It will enable new research activities in parallel and distributed computing systems and applications, more realistic and robust experimental studies, and increase the synergy among the systems research and a number of different, but related, application research projects. Key systems research areas which the infrastructure will enable are cooperative optimization strategies, interprocedural optimization for distributed address space architectures, architectural support for multithreading on a cluster, load balancing and task scheduling, dynamic techniques for providing quality of service guarantees, and network management. Application areas include gesture recognition, multimodal applications, real-time multi-agent systems, video/image processing and parallel symbolic analysis. The infrastructure consists of 20 multiprocessor workstations, connected by both Myrinet and ATM networks, and sufficient local storage and multimedia equipment to support the parallel and distributed applications. The infrastructure will be configured to provide both a dedicated system for applications researchers and a crashable resource for experimental parallel and distributed systems research.